Interpreting Ancient Storm-Event Stratification from Laboratory Experiments on Combined-Flow Bed Configurations

The objective of this research is to make an extensive series of laboratory experiments on bed configurations produced in fine sands by oscillatory flows and combined flows (superpositions of oscillatory and unidirectional components) over a wide range of moderate to long oscillation periods, moderate to large maximum orbital velocities, and small to large unidirectional current velocities. The experiments will be made in a large new combined-flow duct about 15 m long, 1.2 m wide, and 0.4 m deep. The oscillatory component is produced by forcing water back and forth through a closed horizontal duct between open reservoir tanks by means of a piston moving in simple harmonic motion, and superimposing a current by pumping water from one end of the duct to the other at the same time. Comparison of the stratification geometry produced in the sediment deposit with that observed in shallow-marine sandstones in the ancient sedimentary record should lead to fundamental advances in the ability to interpret the depositional conditions of ancient storm-deposited sandstones.